Carbonate Slope Megabreccias and Drowning Unconformities: A Chemostratigraphic and Sequence Stratigraphic Approach

9315724 Simo PI will investigate the relationship between and test three hypotheses addressing controls on carbonate-slope-megabreccia deposition and the formation of drowning unconformities. The project will integrate geochemical and field techniques to provide a chronostratigraphic framework and to evaluate the setting and processes of these megabreccias and associated unconformities. The platforms to be studied are Cenomanian-Turonian in age, located in the south-central Pyrennees, Spain.